Marine Reflection Seismic Data Storage and Access

This grant provides for the archival of single channel and multichannel seismic data collected by investigators at Scripps. At present much of the data re stored on 9-track tapes that will not remain reliable for much longer. The data will be migrated to the IGPP digital archive and will be placed on line in this archive. They will be available to users inside and outside Scripps via aWWW interface.